U.S.-Argentina Workshop on Ethical and Value Issues in the Interactions of Business and the Environment

This award supports the participation of U.S. scholars in an international workshop on ethical and value issues that arise in the interactions of business and the environment. The workshop is to be held in Mendoza, Argentina, from November 9-11, 1989. The project is jointly supported by NSF and the Argentinian National Research Council (CONICET). U.S. and Argentine scholars and entrepreneurs will discuss issues of ethics and values as they relate to attitudes and behaviors of businesspeople towards society and the physical environment. Argentine participants will identify an agenda, issues and priorities for encouraging more harmonious interactions between economic and ecological concerns. U.S. participants will share their experiences in examining and reconciling conflicting environmental and developmental priorities. This sharing will help in the search for and emergence of (1) unique results in each country, with its specific economic, social and ecological constraints and opportunities, and (2) better policies in both countries with respect to these constraints and opportunities.